Intelligent Control Systems Design

Control systems require intelligence to operate efficiently in dynamical environment possessing a high degree of uncertainty. Successful autonomous operation in such situations can result from a carefully designed interconnection of diverse information processing capabilities. Such capabilities necessarily imply some computational representation of the designer's view of what information is important and how it can produce the desire control action. Thus intelligent controllers give rise to dynamical systems defined on extended state spaces and their underlying algorithms amount to rules for tuning and switching in those space. We propose to explore a unified mathematical framework for combining, in a stable manner various information processing capabilities in on-line settings. We intend to explore in detail two specific challenging application - an aircraft and a robot control problem - to provide the stimulus for our theoretical investigations. Finally, we plan to devise a uniform architecture for implementing the diverse information capabilities by the systematic use of artificial neural networks.